CAREER: Multiple Transmit Elements for High Speed Robust Wireless Local Area Networks

There is a tremendous market for tetherless and ubiquitous network
access, and a great demand for nomadic computation and
communication. A major component of such a system is a high speed
robust wireless local area network (WLAN) that provides services for a
limited geographical area. This limited geographical area enables a
large density of access points as well as high power tranmissions and
opens up the possibility of high rate robust multimedia communications
comparable to wired systems. Even though the bandwidth is still
scarce, the spatial dimension can now be exploited: The size of
typical WLAN devices, such as laptops and hand-held computers, enable
proper spacing of multiple antennas to provide diversity and coding
gains.

This research is aimed at a complete system design for multiple
antenna methods in the WLAN environment including coding, modulation,
channel estimation and power control strategies specifically tailored
for the slow fading environment of a WLAN channel. In particular,
high-rate multiple antenna coded modulation techniques and multiple
transmit antenna joint source and channel coding strategies are
developed. The issue of channel estimation along with feedback is
investigated and power control based on limited feedback is adressed.
A general approach to multiple transmit antenna methods is explored by
providing a theoretical foundation for spatially separated antennas in
WLAN environments.

The education plan is closely aligned with the research work and
emphasises the use of internet and computers in education by making
use of Polytechnic University's newly installed WLAN system on
campus. Curriculum development addresses specific needs of
Polytechnic's professional masters program and is based on an
integrated, end-to-end approach to communication systems.